International Research Fellow Awards: Large Time Behavior of Solutions to Nonlinear Hyperbolic-Parabolic Systems of Conservation Laws with Non-Strict Hyperbolicity

9704618 Zeng The International Research Fellow Awards Program enables U.S. scientists and engineers to conduct three to twenty four months of research abroad. The program's awards provide opportunities for joint research, and the use of unique or complementary facilities, expertise and experimental conditions abroad. This award will support a three-month postdoctoral research visit by Dr. Yanni Zeng to work with Dr. Heinrich Freistuhler at the Institut fur Mathematik in Aachen, Germany. An additional three months will be supported by the University of Alabama at Birmingham. Dr. Zeng will study shock wave stability. She will investigate a system which is a typical example of a broad class of nonlinear partial differential equations that together with the equation of state, determine the plane waves of a conducting fluid in the presence of a magnetic field. She will study the large time behavior of the solution. Dr. Freistuhler has expertise in the field of non- strictly hyperbolic systems and Dr. Zeng's expertise is on hyperbolic-parabolic systems. Together they hope to solve the shock wave stability for magnetohydrodynamics (MHD) equations and similar systems from physics, and achieve their goal of qualitative analysis for such systems. ***